Pointwise and Semigroup Methods in Viscous Conservation Laws and Completely Integrable Systems

Viscous conservation laws arise in a wide variety of physical
applications, including fluid dynamics, magnetohydrodynamics,
and materials science. Of particular importance are solutions
of such equations that are stable and hence typically
correspond with observable phenomena. Unfortunately, establishing
the stability of these solutions has proven to be a quite
difficult problem. The pointwise Green's function approach,
however, initiated by Liu and developed by Liu and his
collaborators, has proven quite robust: in applications to
viscous shock waves arising in single conservation laws of
arbitrary order, viscous shock waves arising in systems
with second order diffusion, planar viscous shock waves,
degenerate viscous shock waves, and rarefaction waves.
We propose to continue and extend this promising line of
research in three directions. First, new techniques
recently developed by Howard and Zumbrun appear suitable
for extension to (i) systems of viscous conservation
laws admitting degenerate viscous shock waves, and (ii)
systems of viscous conservation laws with high order
viscosity. Second, we propose to develop further
techniques that will extend the pointwise Green's
function approach to the case of viscous rarefaction
waves. Finally, we would like to incorporate new techniques
recently developed in the context of perturbation theory
for completely integrable systems into the study of
the necessarily oscillatory dynamics that arise in
viscous conservation laws of order higher than two.

The conservation of such fundamental properties as energy and
momentum often leads to partial differential equations
that model some underlying physical process. For example,
the Navier-Stokes equations of fluid dynamics and
the Maxwell equations of electromagnetism follow this
paradigm. Of primary concern are stable phenomena: those
whose principal structure is robust to minor environmental
fluctuations. We propose to continue and extend a
promising line of research that has been extraordinarily
successful in establishing a clear criterion for such
stability. A direct consequence of the approach is a
detailed understanding of certain fundamental partial
differential equations.